REG: A Multi-Media Research Lab for Design/Construction Integration

9412049 McCullouch The researchers will use the equipment to demonstrate to the construction industry how the developing technology of multimedia can be utilized to significantly improve certain functions of the construction process and thereby bring benefits which should stimulate research and development. The multimedia equipment requested will be used to support research on several projects. The equipment will allow the researchers to position the school for research activities that can utilize the promising technology of multimedia and apply it to a major industry, construction. ***